Nonpositive Curvature and Geometric Rigidity

ABSTRACT DMS - 0202536.

This project concerns two major themes. The first is the study of
rigidity theorems (i.e. metric uniqueness) on compact manifolds. Here
for example we consider isospectral problems: to what extent must spaces
with the same spectra (e.g. eigenvalues of the Laplace Beltrami
operator, or Lengths of closed geodesics) be isometric. This also
includes questions about metric rigidity induced by conjugacy of
geodesic flows, as well as inverse scattering problems. The other theme
considers infinite groups G acting cocompactly on nonpositively curved
spaces H (in the sense of Alexandrov). The project is to study the
relationship between the geometry of H and the induced action of G on
the ideal boundary of H. This can be considered an aspect of geometric
group theory and is partially motivated by some questions of Gromov.
As well as these two major themes the proposal concerns the authors
continuing work on various isoperimetric inequalities. These groups show up as
symmetries of Hadamard spaces H (which include spaces of nonpositive curvature.)

The first theme of the project concerns the question of whether a space
can be determined by a certain set of data. One part of this relates to
questions of remote sensing. For example: can you determine the density
of an object (say a persons body or the moon) from measurements taken
"from the outside"? The CAT scan is a practical example where one
determines the mass density (or more accurately the absorption
coefficient) of an object from measurements of the total mass along
straight lines. An alternative set of measurements is the set of times
it takes for sound to travel between any two points on the boundary
(this is a special case of the boundary rigidity question dealt with in
the proposal). The thrust of the proposed study is to determine under
which circumstances certain sets of data (e.g. eigenvalues, lengths of
closed geodesics, distances between boundary points) are sufficient to
completely determine the geometry of the spaces in question. Groups show up
naturally as symmetries of various spaces. The second theme of this project
concerns the study a certain class of infinite groups.